Cut-and-paste contact topology

The pioneering works of Bennequin and Eliashberg from the 1980s and
the 1990s have shown that, among all contact structures, the tight
ones best reflect the topology of the ambient space. Only in the past
decade have sufficient tools been developed to allow many of the
basic classification questions in the subject to be attacked. The PI
proposes joint work with Honda and Mati\'c to analyze the contact
topology of Haken manifolds using cut-and-paste techniques. Important
outgrowths of this investigation include constructions of tight
contact structures in Haken homology spheres, extensions of the
relationship with foliation theory to laminations and hyperbolic
manifolds, and an understanding of the interplay between the
subsurface complex and contact structures on a product.

Three-dimensional manifolds are modeled on the three-dimensional
space we live in. Contact and symplectic topology were originally
motivated by questions of physicists working in classical mechanics
and thermodynamics. They arise in a surprisingly broad array of
applied situations ranging from fluid flows to the manufacture of
projection screen televisions. The proposed research has the
potential to produce new results applicable to these fields.